Neural Crest Differentiation to Endocrine C Cells and Sensory Neurons

This research project addresses the molecular basis of neural crest differentiation. The approach will be to identify and characterize specific genes that are developmentally regulated in a neural crest derived cell line. Glucocorticoid treatment of human medullary thyroid carcinoma cells induces differentiation to a thyroid endocrine C.cell phenotype that is highlighted by increased calcitonin synthesis and secretion. The glucocorticoid induction of calcitonin expression is due to an increased transcription rate and a bias in the alternative RNA processing choice to favor calcitonin mRNA production instead of CGRP (calcitonin gene related peptide). To gain insight into these and other regulatory events that determine neural crest phenotype, the strategy will be to use subtractive cDNA cloning to isolate genes that are developmentally regulated in the medullary thyroid carcinoma cells. Selected cDNA clones will then be used as molecular tags to follow the plasticity of neural crest cells during rat embryogenesis. To identify genes that might control cell differentiation, selected cDNA clones and antisense copies of those clones, will be introduced into medullary thyroid carcinoma cells in an attempt to affect the cell differentiation process. These specific clones will provide useful markers and tools for studying neural crest differentiation to neurons and endocrine C cells and should potentially reveal some of the key factors in cell differentiation and neuronal plasticity.